Mathematical Sciences: Interdisciplinary Conference On Randomness to be held April 12-16, 1988, Columbus, Ohio

This conference is interdisciplinary and foundationally oriented on the concept of randomness. Randomness from the point of view of various fields, including probability and statistics, computer science, psychology, philosophy, and mathematics will be discussed. Invited speakers include M. Blum, L. Blum, P. Diaconis, J. Keller, and B. Scyrms. Randomness is a fundamental concept in several mathematically oriented disciplines, lies at the heart of much research, is subject to various interpretations, and is not fully understood.